Travel to Attend: International Conference on "Reliability of Methods for Engineering Analysis"; Swansea, United Kingdom; July 9-11,1986

This grant will provide International Travel support to permit the principal investigator to attend and present at an International Conference, "Reliability of Methods for Engineering Analysis", to be held at University College, Swansea, U.K. on July 9-llth, l986. The objective of the conference is to bring together leading researchers and practitioners of the fields of finite element analysis and CAD to discuss the present state of computational methods and their integration in computer aided design. Specific emphasis will be given to the accuracy and reliability requirements of the computational procedures and software used. The following topics will be included: accuracy and reliability requirements in practical finite element analysis and industrial applications; accuracy measures in finite element analysis, automatic construction, and adaption of meshes; solid modeling and finite element analysis and graphics; artificial intelligence and expert systems; and verification and quality assurance of software and computer usage (software/hardware design). During the 3-day conference, 30 leading experts will provide overviews of different aspects of the above topics.